ST-CRTS: Collaborative: Delivering on Atomic Actions: Unlocking Concurrency for Ordinary Programmers

Background

Widely recognized problems of programming with threads and locks include race conditions,
priority inversion, and deadlock, problems notoriously difficult both to avoid and to diagnose.
We need better abstractions for ordinary programmers to use to exploit concurrency. A promising
direction that solves the problems with locks is the various forms of atomic action (AA).
An AA is a collection of computational actions that are guaranteed to appear to occur: either
entirely or not at all, and in a definite order with respect to other AAs. Atom-like notions
have enjoyed great success in database applications.

Intellectual Merit

-A precise programming model for AAs, with a focus on closed and open nesting.
- Overheads of alternative AA implementations on existing hardware.
- Performance benefits of AAs resulting from increased parallelism, despite their overheads.
- Hardware-assist for AAs: hardware interfaces (APIs) and virtualization to mask hardware limits.
- AAs vis-a-vis non-transactional activities such as I/O, networking, etc.
- AAs vis-a-vis run-time services such as garbage collection (GC), exceptions, and traps.
- Tools for profiling and tuning performance of AAs, and their refinement re: bottlenecks.

Broader Impact

Delivering on AAs will lead to significant economic and security benefits
through improved robustness and performance of applications for new commodity hardware. AAs
will make it possible to increase concurrency, and thus performance, of software while also increasing
reliability and simplifying tuning and maintenance. Ordinary programmers will more readily exploit
thread-level parallelism on the desktop, writing programs they could not write, and get to work, before.
The project will benefit the hardware industry by exploiting their new offerings, and the software
industry by increasing the robustness of concurrent software, while also contributing to economic and
national security. All project results and tools will be available to the public, and the project will train
graduates in important high-demand skills, and thus contribute to the technical work-force.